Kids and Data: Measuring and Interpreting Global Change

In this project, we will extend to the earth sciences the educational advances of our prior Modeling and Microcomputer Based Lab projects that have generated primarily in mathematics and the physical sciences. This project will bring important, current scientific issues into the secondary school classroom. Initially, we will focus on scientific issues of global change. We will take advantage of current scientific research and technology, and transfer these developments where appropriate to tools and activities suitable for kids. We aim to capture the excitement of current national and international efforts addressing global change through extensive contact and collaboration with practicing researchers. We plan to make issues of global change accessible to an understandable by students by providing opportunities for them to participate in modeling, data analysis, and experimental measurements. To this end, we plan to develop numerical simulations, sophisticated data analysis tools, and new sensors and systems for data acquisition. The project will develop and evaluate classroom material for incorporating these advances, undertake studies that increase our understanding of how students can best use these developments, and will provide realistic mechanisms for wide dissemination of our work. The project involves close collaboration among a broad range of individuals, institutions, and businesses. The work will be guided by an outstanding panel of expert researcher and educators.